HCC: III: Small: Diffusion and Ranking in Social Media: A Computational Examination of the Role of Influence and Authority

The proposal aims at studying authorship flows in information diffusion in social media. The proposal takes an individual level approach to understanding diffusion and authorship flow as compared to existing macro level approaches. The proposed approach is to study the impact of factors such as the type of media format, the type of topics diffused and the valence of the information in information diffusion and authorship flow. An initial taxonomy will be used to classify the type of media format that may evolve with the study. Three models will be combined in the research. The dataset to be used large-scale blogs and tweets. If successful, the project can help to establish a theoretical foundation for understanding the diffusion and authority in digital media.